Integration of Image Processing Education and Research

The research component of this program has two major thrusts: 1) an investigation of the mathematical and computational aspects of the multiframe, bilinear image- recovery problem; and 2) the development and application of solutions for problems in the areas of high-resolution transmission electron microscopy, and ground- and space-based astronomy. Theoretical advances in this program are providing a unified approach to many imaging problems in which intensity data are recorded, including those for which satisfactory solutions have not been previously discovered. Collaborations with materials scientists on problems such as the study of atomic scale processes in solid batteries are providing exciting applications for which new methods developed in this program are being used to enhance the resolving and information-gathering powers of electron microscopes. Through the teaching component, an educational program is being established with emphasis on 1) the development of a multidisciplinary laboratory in which faculty and students from many departments jointly explore problems in remote sensing and imaging; 2) the development of multidisciplinary courses in remote sensing and imaging in which students from many departments are included, and the educations goals for each student - ranging from theoretical foundations to specific applications - are tailored to his or her individual needs; and 3) the use of a strong research-teaching exchange in which cutting-edge technology is used in the classroom and laboratory as a tool to excite, motivate, and retain enthusiasm in the students